Doctoral Dissertation Research in Geography and Regional Science

The hydrogeology of karst, a limestone region marked by sinks and abrupt ridges, irregular protuberant rocks, and underground streams, is important both to the understanding of hydrological processes and to the resolution of groundwater pollution problems. This doctoral dissertation project will assess the extent of groundwater pollution in a representative karst landscape in southwestern Wisconsin, and it will define and quantify the routes by which contaminants reach the aquifer. Groundwater testing, identification of subsurface flow routes, and measurement of solid and sediment infiltration rates will be used to develop a predictive model of contaminant transport and behavior based on the hydrogeology of the dolostone karst terrain. This project will provide valuable information about groundwater. It will lead to enhancement of conceptual models of hydrogeological processes, and it will identify more clearly how rapidly groundwater in karst terrains becomes polluted and comtaminated, the mechanisms of pollution, and the potential for self-correction of the problem. This project also will provide an excellent opportunity for a promising young scholar to continue to develop independent research skills.